REU SITE: Mathematical Sciences--An Undergraduate Research Experience Program in Discrete Mathematics

9531373 Gallian This REU site award provides support for six undergraduate researchers in mathematics working under the supervision of a faculty advisor. The area of research is discrete mathematics. The program will run for ten weeks. Students each give a presentation of their work during the summer. At the end of the program, the students will prepare their work for possible publication.